Mathematical Sciences: Differential Geometry and Geometric Analysis

Three investigators will study problems involving the structure of non-negatively curved manifolds, geodesics, minimal real Kaehler submanifolds, collapse with bounded curvature, adiabatic limits and small eigenvalues of the Laplacian, and rigidity properties of Riemannian manifolds and semisimple groups. These investigators will analyze various aspects of the problem of understanding all curved manifolds. This general problem has been the central theme of differential geometry since its conception over one hundered years ago. Specifically, these investigators will study the behavior of geodesics along curved manifolds. On the surface of a sphere, great circles are the only geodesics. But on other more complex surfaces, geodesics can take on many surprising properties. The study of geodesics has particular application to cosmology since according to Einstein's theories, each of us moves through four-dimensional space-time along a geodesic.